Heuristic Techniques for Improved Problem-Solving Strategies

The ultimate objectives of this research are to understand and analyze the nature of heuristic information and to develop heuristic techniques for improved problem solving strategies. This project seeks to extend and assess the efficiency of constraint-solving algorithms by identifying classes of tractable problems on one hand and improving general backtrack schemes on the other. Our approach is to relate the tractability of the problem to its topological structure. In addition we will extend the constraint-network model to represent non-monotonic knowledge and guide Truth-maintenance algorithms. This extension will be applied to the domains of diagnosis and temporal reasoning.